Lower Bounds in Parallel Complexity

One of the most fundamental problems in theoretical computer science, perhaps next in importance to only the P vs. NP problem, is the P vs. NC problem. Earlier work by the PI has shown that many important combinatorial optimization problems such as mincost flow and maxflow do not have fast parallel algorithms in a PRAM model without bit operations; this is like the usual PRAM model, the main difference being that the instruction set of the processors does not contain any bit operations. Since the maxflow and mincost-flow problems are P-complete, they do not have fast parallel algorithms even in the unrestricted PRAM model assuming P NC. The significance of the result was in the fact that this could be proved unconditionally, i.e., without assuming P NC, in a model that is natural and realistic for the problems under consideration. In fact, the PRAM model without bit operations has been widely used in practice in the design of parallel algorithms for a large number of algebraic and weighted combinatorial optimization problems. These include fast parallel algorithms for solving linear systems, and for minimum-weight-spanning trees, shortest paths, global mincuts in weighted undirected graphs, blocking flows and max flows, approximate roots of polynomials, and several problems in computational geometry. Thus, our lower bound provided a concrete support for the belief that P-completeness implies high parallel complexity, and for the P NC conjecture itself, by proving its weaker implications in a restricted, but realistic parallel model of computation. This project extends these techniques to investigate parallel complexity of several other problems that are not known to be, or expected to be, P-complete, and consequently, whose parallel complexity is not well- understood at present. These include problems from several different areas: network flows, matroidal optimization, computational geometry, numerical computation, approximate optimization, and so fo rth. Investigating parallel complexity of these problems in a unified manner is of considerable practical as well as theoretical significance in the design and analysis of parallel algorithms. The project includes further applications of deep techniques from algebraic to questions of lower bounds in complexity theory.